Efficient Execution of Fine-Grained Concurrent Programs

Fine-grained concurrent programs offer the potential for portable concurrent programming, but their efficient execution is not yet practical. The objective of this project is to develop techniques to support efficient execution of fine-grained programs by transforming their execution grain size. Fine-grained programs present special problems because the overhead of each grain can overwhelm the benefits of exploiting their concurrency. The project focuses on concurrent, object-based programs because they allow the expression of fine-grained concurrency and couple data and program, providing important data locality information. The program transformations increase program locality by grouping objects. This allows small computational grains to be merged into larger grains, increasing execution efficiency and reducing communication requirements. The research will examine quantitative analysis of control and communication patterns in concurrent object-oriented programs, the development of program analysis and transformation techniques, and their implementation and evaluation based on a sharable intermediate form. Quantitative analysis provides a useful point of reference and the basis for understanding the behavior of programs. The analysis techniques identify invocation paths and static object relations, enabling the application of program transformations grouping objects along invocation paths. Such techniques increase program locality, reducing communication and permitting the use of more efficient, specialized code sequences.